Methods in the Representation Theory of Local Rings

This award supports a program for advancement in the representation
theory of commutative Noetherian local rings. The study of maximal
Cohen--Macaulay modules over such rings has grown out of the theory of
representations of Artin algebras, which has developed sophisticated
theoretical techniques for classifying and characterizing module
theories of non-commutative Artinian rings. Classical problems from
the non-commutative theory can often be stated directly in the
commutative higher-dimensional framework, and this framework comes
equipped with its own unique problems, specialized machinery, and
deep, powerful connections with algebraic geometry. The interplay
between the two areas has been exceptionally productive for both.
However, many of the most powerful tools of the Artinian arsenal are
essentially noncommutative, in that they produce noncommutative rings
even from commutative input, restricting their use in commutative
algebra. Recent theoretical advances in non-commutative algebraic
geometry have begun to provide methods, including the notion of a
non-commutative resolution of singularities, similar to those provided
by classical algebraic geometry. Describing these non-commutative
resolutions in terms of tools from the Artinian theory will allow the
powerful tools of that area to be brought to bear on fundamental
conjectures about the maximal Cohen--Macaulay modules over
Cohen--Macaulay local rings.

This project lies at the intersection of the areas of commutative and
non-commutative algebra, combinatorics, and algebraic geometry. The
classical aim of commutative algebra is to describe the solution sets
of systems of polynomial equations by associating to them algebraic
gadgets known as rings. Non-commutative algebra, on the other hand,
has developed theory for associating rings to directed graphs, also
called quivers. The synergy among these topics has enriched all four
subjects, and has led to applications in such varied fields as
robotics, statistics, cryptography, and particularly theoretical
physics.